Expanding Regional Capacity for Training in Engineering Technology and Data Center Operations

Common software systems, such as those based on artificial intelligence, often require a cloud-based computing infrastructure. As cloud-based computing has expanded, so has the need for the data center infrastructure needed to support it. Data centers require significant capital investment, as well as ongoing operational maintenance. Because of tax incentives enacted by the state legislature, data centers are expanding rapidly in Virginia. As data center capacity expands, a trained engineering technology workforce is required to run these data centers. To address this urgent need, this project will expand the engineering technology program at Northern Virginia Community College by improving the recruitment and education of qualified technicians. By fostering a community of practice between industry, secondary educators, and college faculty, the project team plans to improve the workforce pipeline for engineering technology in the northern Virginia region and ensure that students have the skills required to be successfully employed in the data center industry.

This project intends to advance understanding about the efficacy of bridge programs to promote recruitment of underrepresented minorities into higher education. It will also examine the efficacy of bridge programs and internship preparation for improving student career attitudes and readiness. It expects to increase the regional supply of engineering technology technicians through the following activities: (1) a two-week summer bridge program focused on career exploration and hands-on learning; (2) an internship preparatory program designed to support students in developing career readiness; (3) an externship for high school educators and industry professionals to develop first-hand knowledge of regional career pathways for engineering technology; and, (5) a veterans outreach program to inform military-connected students about the College’s engineering technology programs. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.